Semantic Goals for Communication

Semantic Goals for Communication

Madhu Sudan
MIT CSAIL

This project initiates the study of semantic issues underlying
communication: How do two communicating parties resolve
potential misunderstandings about the {\em interpretation}
of the information (bits) that they are exchanging?
The principal objective of this project is to produce
a series of mathematical definitions capturing the underlying
problem. Furthermore the project seeks to discover paradigms
that lead to robust communication, without misunderstanding.

The principal insight at the core of this project is that
each communicating player has selfish goals that describe what
it would expect from the communication with the other players.
Such goals are non-trivial (can not be achieved by one player
alone), and verifiable by the player. The project explores the
possibility of using these verifiable goals to enable mutual
understanding. Specifically, it uses research from the last
several decades in complexity theory on interactive proofs and
program checking to suggest scenarios in which communicating
players could start without any prior common background and
start to converge towards a common understanding, thereby
establishing a theory of understanding. The broader impact of
this project would be to enable a mathematical approach to
understanding human communication and development of language,
as also to guide the design of robust protocols for inter-computer
communication.